Center for the Application of Parallel Architectures and Algorithms

The principal investigators are computational scientists that are developing algorithms to solve computational chemistry problems on advanced parallel architectures. They propose to use Monte Carlo methods, specifically the varational and Green's function Monte Carlo techniques to study the properties of clusters of He-3; jellium (a first stage model for clusters of alkali metals) including its polarizability; and Xenon. They also expect to explore new algorithms particularly suited to the use of the IBM RPX3 parallel architecture for problems of this kind. The Deputy Director of the Division of Advanced Scientific Computing is pleased to support the recommendation of the CISE1/Computational Science & Engineering Panel and recommends a twenty-four month award for this promising project.